RAPD: Eye-Hand Coordination Assessment/Therapy Using a Robotic Haptic System

CBET-0828492
Pernalete

Children with genetic anomalies or neurological disorders often require treatment in order to improve their eye-hand coordination and grip strength so that they may increase their level of participation in classroom and daily living activities [15]. The goal of this project is to develop a robotic haptic system that assesses and improves the eye-hand coordination and strength of children with these challenges. To attain this goal, the current thinking regarding the relationship between coordination and grip strength will be assessed and the population of children who could benefit the most from this research will be identified (Objective One). Next, six tasks with distinguishable levels of difficulty will be identified based upon a detailed analysis of patterns (Objective Two). Algorithms that support the children’s use of the robotic devices, but which do not override the commands made by the child, will be incorporated into the system (Objective Three). A fuzzy logic-based intelligent decision support system will be integrated into the proposed system which will facilitate the selection of tests by the system based upon accuracy and time measurements (Objective Four).

In this project, handwriting serves as the measurable outcome due to the broader implications of enhanced writing skills on academic performance tasks such as reading, writing, and speaking. Learning to write is an important and complex occupation of children [5, 10]. Further, writing is the primary way for students to communicate with and to display what has been learned [14]. In a public school setting, problems with handwriting or drawing typically result in referrals for occupational therapy services [9]. Improvements in eye-hand coordination will also enhance the ability of children to perform daily living tasks (dressing, feeding), which in turn, may result in more opportunities for employment and other contributions to society as they enter adulthood. The testbed to be used consists of a six-degrees-of-freedom force-reflecting haptic interface device, PHANToM - with the software development toolkits.

The intellectual merit of this project is to provide innovative research to improve eye-hand coordination, which in turn will allow children to increase their participation in various occupational activities including those of daily living and in the classrooms (i.e., handwriting). The system will use robotic mapping from a haptic user interface to a virtual environment along with an intelligent decision support system. In the case of the eye-hand coordination, we employ the sense of touch because the individual does not possess a well-developed visual feedback to control his/her movements. The principle investigator (PI) has conducted extensive research in the application of haptics to the execution of various occupational therapy tests by people with disabilities. In addition, the PI has close working relationships with the Rehabilitation Robotics Laboratory at the University of South Florida and with the Occupational Therapy Department at Western Michigan University and is exploring local collaborations with Rancho Los Amigos National Rehabilitation Center. Preliminary data [13] obtained from a single subjects study of children diagnosed with eye-hand coordination problems indicate an improvement in the ability of the children to execute and complete the tasks. The results suggest that this proposed system could be used for assessment and training purposes. Also, the data suggests that the introduction of the haptic rendering capabilities, including the force feedback, offers special benefit and measures the impact on eye-hand coordination and the occupation of handwriting.

The broader impact is two-fold: It provides innovative research in rehabilitation robotics to the engineering and the health sciences community and its integration into the curriculum at the undergraduate and graduate levels within the various departments in the College of Engineering represents a new area of research for students. They will be able to experience the interdisciplinary nature of Robotic Systems within the context of Rehabilitation Engineering. Given the preliminary data, this system has the potential for reducing the burden and costs associated with the use of a trained professional to assess the disability and to conduct training sessions with the individual. Furthermore, this design may enhance the type and amount of data that clinicians use to assess and plan the respective treatment for improving eye-hand coordination and grasp strength. Finally, an extension of this system could include the identification of specific job tasks that could be accessed through a computer desktop as a training tool for individuals with various forms of disabilities in activities of daily living (ADL).